A Divergence Free H(div) Finite Element Method

The objectives of the project are to develop a divergence free H(div) finite
element method for the Navier-Stokes equations and provide divergence free
subspace bases for the three dimensional H(div) elements for the method. The
finite element formulations using H(div) conforming elements for the
incompressible flow problems have been studied by the PI and other
researchers. The H(div) finite element methods have the advantage that the
incompressibility constraint is satisfied exactly. Furthermore, if a basis of
the divergence free subspace for the H(div) element is available, the velocity
can be approximated in the divergence free subspace. This eliminates the
pressure and the whole incompressibility constraint from the large complicated
system. As a result, the computational cost is reduced significantly.
Therefore construction of the exactly divergence free subspaces bases for the
H(div) elements has theoretical and practical significance. The proposed
research will lead to an efficient and accurate algorithm for a large class of
the problems with a special feature: the divergence free condition is
satisfied exactly.

Partial differential equations may arise in all fields of science and
engineering. The study of numerical solutions for solving partial differential
equations is extremely important in practice. A large class of the partial
differential equations derived from different fields has the constraint that
some interesting variable is divergence free. For example, such equations
arise in the study of incompressible flow problems.
Many numerical methods have been developed for solving this kind of problem.
However, very few of them satisfy the exact divergence free condition. The
proposed research will provide engineers with a promising numerical algorithm
for the problems arising from computational fluid dynamics and other fields
where the divergence free constraint arises. The proposed project pays
intensive attention to promoting teaching, training, and learning.